Greater Boston Logic Conference

Abstract

Award: DMS-0302174
Principal Investigator: Gerald E. Sacks

The Boston Logic Conference is scheduled for May 16-18 2003 at
the Massachusetts Institute of Technology. Nine invited talks and
numerous contributed short talks will be given on recent
developments in all areas of mathematical logic. Among the topics
are stability, minimaility, simplicity, finite axiomatization,
degrees, recursive enumerability, forcing, large cardinals,
determinacy and fine structure.

The purpose of the conference is to give young people of all
backgrounds a chance to present, discuss and hear about current
work on all aspects of mathematical logic. By "young" is meant
students, post-doctoral fellows and junior faculty members.
Travel support is available and will favor the young and the
under-represented. Mathematical logic has wide applications not
only to pure mathematics but also to computer development,
financial services, and strategic planning. The hope is that the
conference will help to establish working connections among the
young people in mathematical logic.